Caltech Entrepreneurial Fellows Program

0090616
Murray

This award is to California Institute of Technology to support the activity described below for 30 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
Partners for the partnership include California Institute of Technology; Art Center College of Design; State government through Business Technology Center incubator; private industry.

Proposed Activities
The activities for this award include creation of post-degree entrepreneurial fellowships with the goal of preparing students previously trained in science or design to adapt their skills to the development of commercial products in the start-up environment; training in entreperneurialship (business plan, develop engineering prototypes; financial sources, etc); industrial partner mentor program.

Proposed Innovation
The innovation goals for the award include education of entrepreneurial leaders who have primary graduate and post-graduate education in science and engineering; formation of start-up high tech companies; development of educational modules for entrepreneurial courses for export to other universities.

Potential Economic Impact
The potential economic outcomes include teaching modules for export to other schools; spin-off companies; network of entrepreneurs and industry partners; graduates in science and technology with entrepreneurial training for leadership roles in the private sector.

Potential Societal Impact
The major benefit to society from this award will be the creation of high tech jobs and an education methodology for training future leaders in an innovative society.